Doctoral Dissertation Research in Geography and Regional Science

Recent studies have been undertaken at sites scattered throughout the world to analyze pollen and sediments in cores from bogs, lakes, and other appropriate settings. These analyses have shed considerable light on changing patterns of vegetation and climate over the last 10,000 and more years. One area that has not been intensively studied, however, is the humid, subtropical region of southeastern China. This doctoral dissertation project will extract and analyze cores from bogs in the Wuyi and Daiyun mountains of Fujian Province. Radiocarbon dating will help establish the ages of pollen and sediments within the cores, and related analyses will help reconstruct vegetational and climatic patterns in the region. This project will provide valuable information for reconstructing the natural environmental history of southeastern China. This reconstruction will be especially useful because it will help assess the impacts of changing conditions on monsoon circulation, which is such an important facet of the region's climate. This project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.